Mathematical Sciences: Computational and Mathematical Investigations in Optimization

Optimization studies have been of increasing depth and significance in recent years. It is an important methodology for decision - making, with broad applications. This award will support a firm approach for investigations.